Planning for Reform in Secondary Science and Math (PRiSSM)

0002681
KENNEDY

Planning for Reform in Secondary Science and Math (PRiSSM), a twelve-month planning project, seeks to coordinate activities among local secondary schools, higher education institutions and community partners in southwestern Washington. The project engages participants in (1) an assessment of programs, beliefs, expertise and missions across institutions; (2) building consensus on the alignment of programs from the point of view of both content and pedagogy; and (3) building consensus on core competencies for mathematics, science and technology education of grades 6-20. An important outcome of the work will be an understanding of the local needs for professional development of teachers, leaders of professional development, and teacher mentors in science, mathematics, and technology.

The project is managed through the Science and Math Education Resource Center at Educational Service District 112 (Washington), a regional partnership among the district, Washington State University - Vancouver, and the Hewlett Packard Corporation.